Acquisition of a 400-MHz Multinuclear Solid-State NMR Spectrometer with Wide-Bore 9.4-Tesla Magnet

9503936 Beckham The Georgia Institute of Technology will acquire a multinuclear solid-state nuclear magnetic resonance (NMR) spectrometer. The instrument will support and significantly enhance the research efforts of five promary investigators in the fields of polymers, fibers, ceramics, and inorganic materials. Four of the investigators (Abhiraman, Beckham, Rees, and Tolbert) represent four separate academic units within Georgia Tech (Chemical Engineering, Textile & Fiber Engineering, Materials Science & Engineering, Chemistry & Biochemistry), while the fifth (Mariam) is from Clark-Atlanta University, an institution closely allied with Georgia Tech both professionally and geographically. The common thread connecting all five investigators is the production of macromolecular solids: Such materials are being either improved or prepared de novo. Advanced experimental NMR applied to relevant problems of materials improvement and development represents the major theme of these interdisciplinary groups. The purchase of this 400-Mhz solid-state NMR spectrometer with 9.4-Telsa wide-bore magnet, will have significant impact on materials research and education programs at Georgia Tech and Clark-Atlanta University. ***